Bound and Continuum Properties of High Z Atoms and Anions

It is planned to study both bound and continuum properties of lightly ionized medium- to high-Z atoms and ions. Both relativity and electron-electron interactions (correlations) must be considered. The case of negative ions is particularly challenging, as most such systems are unbound in the absence of correlations. It is intended to extend present bound state methods to include the continuum case, permitting for example a discussion of photoionization. The present bound state methodolgy will also be extended to permit a treatment of middle of the row transition metals.